4th China-Japan-U.S. Conference on Biomechanics

9420884 Woo This award provides partial support for a group of 14 young U.S. investigators to the subject conference that is set for May 21-27, 1995 in Taiyuan, China. Each of the investigators is to present a paper on the results of his or her research. Benefits to U.S. participants in the conference include the opportunity to develop collaborative research projects with investigators in other countries, to identify the best potential foreign applicants for biomechanics graduate studies in the U.S., and to strengthen ties between the other countries and the U.S. ***